RESEARCH INITIATION AWARD: Simulation of Nonsinusoidal Waveform Propagation in Distribution System Using Fast Real Transforms

9410183 Olejniczak This project investigates new frequency-domain analysis methods for electric power quality assessment. The Hartley transform is studied as an alternative methodology for the periodic steady- state solution of electric power systems modelled by their sinusoidal steady-state equivalents. Since the fast Hartley transform (FHT) is the most computationally-efficient frequency- domain algorithm for performing linear or time-domain convolution, the power system response to nonsinusoidal excitations may be calculated efficiently and accurately. It is expected that the results of this research may lead to new real- valued component models and structured matrices which may be amenable to sparsity and parallel-processing techniques. ***